International Postdoctoral Fellows Program: Spin Polarized Inverse Photoemissions of Atomically Engineered Magnetic Structures

9401668 Mankey This award is under the International Junior Investigator and Postdoctoral Fellows Program, which enables U.S. scientists and engineers to conduct three to twelve months of research abroad at research centers of proven excellence. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a four-month postdoctoral research visit by Dr. Gary J. Mankey of Penn State University to work with Dr. Markus Donath at Max-Planck Institute fur Plasmaphysic on spin polarized inverse photoemission of atomically engineered magnetic structures. The goal of Dr. Mankey's research is to develop a new instrument capable of studying newly discovered phenomena for a wider range of magnetic materials and artificially layered structures. The collaborators intend to measure the changes in the electronic structure of solids as one goes from the bulk to thin films, superlattices, and ultimately to a single atomic layer. The work will develop collaboration between two leading groups in inverse photoemission spectroscopy: a university research group at Penn State, an industrial research group at IBM Yorktown in the U.S. and a university research group at MPI in Germany. ***